Kinetics and Pathways for Gasification in Supercritical Water

CBET-0755617, Savage

INTELLECTUAL MERIT

Gasification of organic materials and compounds can be done in water above its thermodynamic critical point (374 °C, 22 MPa). The technological, economic, and energetic feasibility of supercritical water gasification (SCWG) has been demonstrated. Biomass, either "energy crops" or agricultural and food processing waste, can be gasified to produce H2 or syngas. SCWG of biomass is one approach for sustainable energy production.

Though the feasibility of SCWG has been demonstrated, very little is known about the kinetics and pathways of the chemical reactions that govern SCWG. Such information is of interest scientifically because it will extend our knowledge of hydrothermal organic chemistry into a new region that has received scant attention. The information is also of interest technologically because it can be used to facilitate the design, optimization, and analysis of SCWG processes.

The goal of this project is to determine the kinetics and pathways for both homogeneous and catalyzed SCWG of a set of model compounds under well characterized conditions. This work will focus on reporting the kinetics for SCWG in metal-free reactors and the results from detailed analysis of products in both the liquid and gas phases. The PI will use thick-walled glass capillary tubes as mini batch reactors.

There are two primary components of this research. One is to determine the SCWG reaction kinetics and pathways for uncatalyzed gasification of a suite of biomass and bio-waste model compounds. The other is to determine the reaction kinetics and pathways for catalyzed gasification of these model compounds.

BROADER IMPACTS

The project will generate scientific advances and, eventually, technological advances. The PI will publish the scientific advances to broadly disseminate them. If technological advances are achieved, the benefit of this work will extend to the energy industry and the general public (by having a more politically stable and sustainable source for electricity and transportation fuels). The project will also provide training for a graduate student and about six undergraduate students, so there are human resource benefits. Additionally, the PI will continue his practice of incorporating his research results into the undergraduate and graduate classes he teaches at Michigan, so there will be benefits related to the integration of teaching and research. Thus, the broader impacts of this project include the possibility of technological advances that move us toward a more renewable and sustainable energy supply, the development of human resources in science and engineering, the broad dissemination of project results, and the integration of research and teaching.